Renovation of the John Marr Alpine Laboratory at the Mountain Research Station

The Mountain Research Station of the University of Colorado is one of the nation's outstanding biological stations. The facility is a national and international resource used extensively by researchers from a variety of institutions and agencies. Research at the site, begun in 1914, has added significantly to our understanding of biological and physical processes, especially at high altitudes. The station served as a major site for the International Biological Programme and is now a Long-Term Ecological site. An extensive data base has been developed as a result of these and other programs, including the Mountain Climate Program which the station has operated since 1952. This project will provide partial funding for renovation of the John Marr Alpine Laboratory, the principal research building at the station. Specifically, NSF funding will be used for elimination of hazardous asbestos materials and for the provision of handicap access to the buidling. The University's commitment to providing improved facilities for the conduct of field-based biological research is demonstrated by a substantial matching contribution.